Inverse Problems in Shallow Oceans

9402539 Gilbert The research seeks to investigate direct and inverse acoustic problems in shallow oceans. The approach would be to use homogenization to derive the deterministic and stochastic differential equations for the ocean seabed system. There are several open problems still associated with the deterministic problem such as a correct formulation of the farfield, the unidentified inclusion problem, and for that matter, the proof of the existence of the fundamental singular solution and an efficient computational method for finding it. The homogenization approach produces the deterministic model as the zero order term and the first order takes in the random nature of the media by proposing a stochastic differential equation. The research is aimed at studying this stochastic differential equation and to pose and investigate the random inverse problems associated with it. ***